RUI: Oxygen Defense Mechanisms in Legume Root Nodules

Nitrogen-fixing organisms are especially vulnerable to oxygen damage due to the oxygen sensitivity of nitrogenase and to the strong reducing conditions required to fix nitrogen. In legume root nodules, oxygen toxicity is minimized by action of special defense enzymes including superoxide dismutase, ascorbate peroxidase, monodehydroascorbate reductase and other enzymes of the ascorbate-glutathione cycle. The main objectives of this research are to characterize the enzymes involved in oxygen defense, to determine the subcellular localization of these enzymes, to determine if these enzymes are nodule-specific, and to examine the criticality of the link between oxygen defense and nitrogen fixation. Enzymological studies will involve purification and 2-D gel electrophoresis followed by immunological detection. Purified enzymes will be used to prepare antisera for immunological detection of subcellular localization using both light and electron microscopy. Ineffective nodules will be examined for deficiencies in oxygen defense enzymes. Plants with effective nodules will be grown in root atmospheres of various oxygen concentrations and the response of nodule defense mechanisms will be monitored.%%% Legumes provide a substantial portion of the world's protein without requiring nitrogen fertilizer. The enhancement of nitrogen fixation in these, as well as other crop plants, is an attractive alternative to increasing reliance on nitrogen fertilizers. In order for such improvements to come about we must understand both the biochemistry and physiology of nitrogen nodule physiology. This research investigates the enzymes responsible for minimizing oxygen toxicity in these nodules. A better understanding of these enzymes may allow for their manipulation which may, in turn, increase crop yields. Furthermore, they may be required for the future development of new nitrogen-fixing associations in crop species.***//